Behavior, Ecology and Genetics of an Apparently Communal Halictine Bee

9312225 Kukuk Ecological, behavioral, and genetic approaches will be used to explore the origin and maintenance of cooperation among non-relatives in the group-living halictine bee species Lasioglossum hemichalceum. Field studies of nest parasitism, ant predation, and nest availability will address the question of why living in groups is advantageous. Field studies of individual survival and reproductive success will provide data to test a mathematical model of how this form of cooperation works. This model uses state-of-the-art methods to predict the number of individuals that will perform risky tasks (such as foraging) for any given group size. Genetic studies, using DNA fingerprinting, will allow Dr. Kukuk to establish genealogies for groups to precisely assess the reproductive success of group members. This multifaceted research project represents a significant advance in the study of cooperation among non-relatives. The importance of sociality as an evolutionary innovation cannot be overemphasized. Cooperation among groups of individuals led to the success of Homo sapiens, and is paramount in nature. Social insects are ecologically dominant in most terrestrial habitats in terms of both energy consumption and biomass. Social innovation and diversity have evolved in many insect lineages. The halictine bees are of central importance in the study of social evolution because of the enormous diversity of social organization found in this subfamily. In addition, the form of cooperation found in the halictine species L. hemichalceum is not well studied, even though it is common. Answering the how and why questions about the evolution of cooperation among non-relatives will challenge currently held theories that emphasize the importance of genealogical relationships among group members, and will provide insights into alternative forms of social organization.